MRI Track 1: A high resolution inductively coupled plasma mass spectrometer for research in the earth, ocean, environmental and related sciences

This award supports the purchase of a high resolution inductively coupled plasma mass spectrometer. Research applications include Earth, ocean, environmental and other sciences. The instrument will allow measurement of elements at extremely low concentrations in a range of natural materials such as rocks and minerals, shells, ice, foodstuffs, and seawater. The new instrument will support research in ocean circulation and chemistry, toxic metals in food materials, high temperature volcanic and geothermal systems, and critical mineral formation. The project will also provide workforce development and training opportunities for students.

This award supports the purchase of a state-of-the-art high mass resolution inductively-coupled plasma mass spectrometer (HR-ICP-MS). The instrument will enable measurement of the abundance and isotopic composition of elements present at ultra-low abundances in complex materials. The instrument will facilitate cutting-edge applications that require high sensitivity, medium and high mass resolution, wide dynamic range, and flat topped mass peaks, among other features provided by HR-ICP-MS. Applications include geochronology of young volcanic rocks; environmental, volcanic, and extraterrestrial inputs to ice core samples; formation of critical metal ore deposits and geothermal energy development; iron and other trace metals in ocean waters; bioaccumulated toxic metals in honey, moss and other environmental materials from urban areas; and the role of sulfur and nutrient metals in biological functions and global biogeochemical cycles. The instrument will be used in graduate and undergraduate classes, and will provide important student training and career development opportunities in analytical geochemistry.